CT-ER : Runtime Techniques for protecting confidential data in large scale software

With the increasing amount of confidential information being handled
by computer software, ensuring privacy of personal information is
becoming a great concern. To address this concern, this project
investigates mechanisms that track
the use of sensitive data handled by software programs with the goal of
preventing unauthorized disclosure.
The technical focus is on the use of runtime mechanisms that track the
use of sensitive data. There are three thrust areas investigated in
this proposal (a) mechanisms for process based separation and
runtime checking for enforcing confidentiality policies
(b) techniques for erasing sensitive data from programs
after their intended use and (c) techniques for tracking implicit
information flows. The project uses novel ideas that build on the PI's
prior work in language based techniques for addressing
fundamental research questions in these thrust areas.
To maximize impact, this project will also implement tools
that will apply these techniques to large scale software
applications. These tools will enable programmers and end users
to retrofit programs in order to safeguard their
confidential data. These tools will be distributed using the
Web for the widest possible dissemination and further enhancement.
With regards to education, this project aims to train both graduate and
undergraduate students to perform research in the the application of
language based methods for computer security and privacy.